ITR: Collaborative Research--Ascertaining Runtime Branch Characteristics through Algebraic Analysis of Programs

The goal of this research is to reduce the cost and improve the
performance of observation-based branch characterization mechanisms in
the compiler and hardware. Often, correlation discovered at great cost
or missed entirely through execution can be determined in a simple
algebraic fashion at compile time. Relationships between program
structures can be inferred from these algebraic expressions and
subsequently conveyed to compiler optimizations and to the hardware
through appropriate mechanisms to be developed by this research. Once
employed, these relationships can refocus the efforts expended by
observation-based mechanisms, or can eliminate the need for them
altogether.